Photocatalytic Decomposition of Organic Polluntants in Gas Streams (GPOP)

This is a phase II award under the small Business Innovation Research program. In Phase I, the efficient photocatalytic decomposition over titanium dioxide of several organic pollutants in the gas phase under a range of concentrations and conditions was demonstrated. In this work, it will be established whether the pollutants are in fact detoxified and not converted to decomposition products that are still toxic in an environmental sense. The products of the process under various radiation intensities, flow rates, and concentrations are identified. Photoefficiency and product measurements are made for gas streams typical of those found in the field. An attempt to define the useful scope of the gas-phase sensitization method is made.